Renovation of Olin Hall

This proposal requests funds to renovate research space (4,328 net square feet) in Olin Hall for the Departments of Physics/Astronomy and Psychology. The renovation is part of a detailed, long- range plan developed by the College. In 1993 construction will begin on a new biology building that will be attached to Olin. When the Biology Department leaves for its new quarters, Olin will be renovated to provide modern research and teaching facilities. The remodeling of the physics/astronomy facilities will provide the department with a computer laboratory and greatly improved research facilities in the areas of molecular biophysics, condensed matter physics, and atomic and nuclear physics. Reconfiguration of space and modernization of services will allow for greater flexibility and efficiency which will lead to increased productivity. Graduating an average of 20 majors per year, the Physics/Astronomy Department typically has 10-15 students working with 6 faculty on research during the academic year and summers. These collaborations will be greatly enhanced by the modernization of research facilities. Currently the Psychology Department labors in facilities that are extremely small and poorly designed for experimental work. With this renovation the Psychology Department hopes to obtain the research facilities that can support properly the level of research activities currently taking place. As in Physics/Astronomy, students are a major part of the Psychology Department research program. Psychology graduates an average of 30 students a year, and in a typical year, 10-15 students work with 6 faculty on research.